Investigations in Supernova Physics, Award in Indian Currency

Description: In a joint research project Dr. S. M. Chitre of the Tata Institute of Fundamental Research, Bombay, India and Dr. David Schramm of the University of Chicago will study the phenomena of supernova. The physics of supernova has been a theoretically-dominated field for centuries, but recent events, namely the supernova that occurred on February 23, 1987, have added a new dimension through the observations that have occurred, especially in the Large Magellanic Cloud. The project will seek to study the physics of the core of the supernova, as well as the nucleosynthesis products of the supernova, and the evaluation of massive stars and their subsequent production and dispersion and supernova explosions. Significance: The two scientists who are eminent in the field in their respective countries plan to collaborate in theoretical studies and analysis of observational data made worldwide in 1987, to study the interest phenomena of supernova. The results of advances in this field are wide-ranging in the understanding of physics of matter, astronomy and astrophysics.